Engineering Research Equipment Grant: cw-Modelocked YAG/dye Laser System

The equipment purchased will contribute to a growing lightwave facility at this institution. The work to be carried out will involve the detection of radiation with unique structures which enhance coupling between lightwaves and the electronic current flow. The laser compliments nicely the other facilities presently being at this university and is a basic laser system which can serve as a general facility.